Examining Delinquency and Drug Use During Later Adolescence

The Rochester Youth Development Study is a longitudinal examination of the causes and correlates of serious delinquency and drug use. Phase I of the study, funded primarily by the Office of Juvenile Justice and Delinquency Prevention (OJJDP) with some supplemental support from the National Science Foundation and the National Institute on Drug Abuse (NIDA), followed a sample of high risk youth from the seventh and eighth grades until their eleventh and twelfth grades at six month intervals. This grant provides partial support for Phase II which will follow the youth to early adulthood. The objectives of the study are to understand the social and psychological factors associated with different stages of criminal careers, especially the termination of careers for many offenders during early adulthood, and the continuation and escalation of criminal behavior for others. Since much of the data collection for Phase II will continue to be funded by OJJDP, the NSF support will be used for data analysis and dissemination of findings. Two major theoretical models that are being tested, interactional theory and network theory, will be analyzed. Also, issues such as onset, specialization, desistance, and the link between delinquency and drug use will be examined. A number of publications are planned as a result of this work. This project provides the most extensive delinquency data set assembled to date and already has contributed significantly to a better understanding of the factors that contribute to, as well as insulate against, serious involvement in crime and delinquency. We have relatively little information about criminal involvement at the transition from adolescence to adulthood and virtually no information relating contemporary factors at these ages to earlier attitudes and behaviors. Doing so allows for a fuller description of criminal careers and extends theoretical understanding of factors associated with continution of or desistance from deviance. The results of this research promise to influence the study of delinquency for years to come.